Many-Particle Systems Beyond the Mean-Field Limit

This project develops new approaches in the theory of Partial Differential Equations (PDEs) with a focus on large systems of interacting particles – commonly known as many-particle or many-body systems. Such systems arise in a large set of applications, including biosciences, statistical physics, and fluid mechanics. Due to their inherent complexity, one of the central goals of the project is to create more accurate large-scale representations that go beyond classical statistical descriptions. The investigator will in particular focus on second order systems and systems with non-identical particles or agents, which appear in models from plasmas and astrophysics/cosmology to networks of biological neurons.

These systems are often governed by large coupled systems of ordinary or stochastic differential equations (ODEs/SDEs), posing significant challenges for both analysis and computation. Reducing this complexity is a key question that is often answered through the notion of mean-field limit and the concept of propagation of chaos. However, in practice, applications have a fixed number of particles and the mean field approximation may become inaccurate over long time scales since the exact solution may deviate from the mean-field limit exponentially fast. The investigator studies the deviations to the mean-field limit to derive more accurate descriptions, and better capture the long-time behavior. A key approach in the project revolves around clustering expansions of the joint law of the system, through the notions of cumulants and their recent extension to dual cumulants.